Interactive Control System Design Laboratory

The feedback control laboratory provides students with hands on experience in control system identification, compensator design, and performance verification. The experiments are structured such that the students learn and test problem- solving strategies in feedback control. Personal computers perform process data acquisition and real-time process control. The computers provide graphics support for system identification and compensator design choices, for comparisons between predicted and actual performance, and for iterative performance improvement. Students design test compensators for thermal, fluid, pneumatic, and high-pressure hydraulic control systems, as well as DC-motor speed and position control systems.